SBIR Phase I: Advanced Positron Annihilation Mass Spectrometer

This Small Business Innovation Research Phase I project will establish the feasibility of developing a greatly improved mass spectrometer based on the annihilation of positrons. The project is based on the latest developments in techniques to accumulate positrons from a radioactive source in Penning traps using a buffer gas. The Advanced Positron Mass Spectrometer will use positrons to control precisely the ionization and fragmentation of complex molecules. The technical objectives of Phase I are to: (1) assemble an experiment
to investigate positron ionization mass spectrometry of biomolecules; (2) perform experiments to compare the performance of positron ionization of these molecules with currently used ion sources for mass spectrometry; and (3) carry out the conceptual design of a laboratory prototype system for Phase II. The Phase I feasibility experiments will be performed on the positron trap at the University of California, San Diego. If successful, this project will provide the basis for demonstration of a laboratory prototype of the
mass spectrometer in Phase II. Phase I and II will provide the foundation for commercializing the new technology in Phase III. This project addresses a 1999 critical technology of national importance, biotechnology.